Upgrading of Computer Facility for Research in Seismology

This award provides one-half the funding required for the purchase of computer equipment to serve the seismology research group in the Department of Earth & Planetary Sciences at Harvard University. Harvard is committed to providing the remaining necessary funds. The equipment includes upgrades of two fileservers to multiprocessor machines, workstation upgrades, acquisition of a color graphics workstation, and the acquisition of a tape archive unit. The seismology research group at Harvard investigates a broad range of problems in seismology including the analysis of very large data sets for the study of earthquake source parameters and the determination of earth structure.